Thermal Plasma Processing of High Tc Superconducting Oxides

This research is on thermal plasma processing of High Tc superconductor processing of 1-2-3 compounds. It involves an attempt to develop a technique to deposit superconducting coatings on a suitable substrate by means of a thermal plasma jet. The research is intended to produce a uniform and dense coating of 1-2-3 compound.